Morphometrics: A Critical Reassessment

Morphometrics is a relatively new family of approaches to the changes in organismal size and shape. Morphometric techniques have been used in the study of individual growth as well as evolutionary change. Its precursor, multivariate biometrics, was based on the statistical analysis of measurements made on sets of component parts of organisms (e.g., leg length, or body weight). In contrast, morphometrics attempts to capture and distill the essential geometric patterns of change by studying discrete landmarks, or whole outlines, or surfaces of biological interest. The past decade has witnessed a profusion of these geometric/statistical techniques, and the advent of microcomputer-based image analysis systems has made their application widespread. Unfortunately, most biologists are ill- equipped to understand the mathematical underpinnings of these techniques, and they are therefore unable to make critical choices between alternate approaches. Dr. F. J. Rohlf has focused on the various strengths and weaknesses of different techniques, and has sought to guide biologists to the technique that is most appropriate for the organisms and hypotheses under study. His software programs have provided access to subtle and complicated approaches, and his continued research into the full spectrum of morphometrics will have benefits for the entire biological research community.